GRIDS: Graphing Research on Inquiry with Data in Science

The Graphing Research on Inquiry with Data in Science (GRIDS) project is a four-year full design and development proposal, addressing the learning strand, submitted to the DR K-12 program at the NSF. GRIDS will investigate strategies to improve middle school students' science learning by focusing on student ability to interpret and use graphs. In middle school math, students typically graph only linear functions and rarely encounter features used in science, such as units, scientific notation, non-integer values, noise, cycles, and exponentials. Science teachers rarely teach about the graph features needed in science, so students are left to learn science without recourse to what is inarguably a key tool in learning and doing science. GRIDS will undertake a comprehensive program to address the need for improved graph comprehension. The project will create, study, and disseminate technology-based assessments, technologies that aid graph interpretation, instructional designs, professional development, and learning materials.

GRIDS will start by developing the GRIDS Graphing Inventory (GGI), an online, research-based measure of graphing skills that are relevant to middle school science. The project will address gaps revealed by the GGI by designing instructional activities that feature powerful digital technologies including automated guidance based on analysis of student generated graphs and student writing about graphs. These materials will be tested in classroom comparison studies using the GGI to assess both annual and longitudinal progress. Approximately 30 teachers selected from 10 public middle schools will participate in the project, along with approximately 4,000 students in their classrooms. A series of design studies will be conducted to create and test ten units of study and associated assessments, and a minimum of 30 comparison studies will be conducted to optimize instructional strategies. The comparison studies will include a minimum of 5 experiments per term, each with 6 teachers and their 600-800 students. The project will develop supports for teachers to guide students to use graphs and science knowledge to deepen understanding, and to develop agency and identity as science learners.